Seasonal Variation in Zooplankton Composition at the Bermuda Atlantic Time Series (BATS) Station

This project is for a program of macrozooplankton sampling to be conducted monthly as part of the regular JGOFS sampling at the Bermuda Atlantic Time Series (BATS) station in the Sargasso Sea. At present no zooplankton sampling is included in the Time Series cruises, despite the importance of macrozooplankton grazers in the packaging and transporting of primary production out of the mixed layer. The monthly (or more frequent) samples over a three year period will provide valuable supporting data on seasonal distribution for other concurrent work on vertical migration of zooplankton. It would produce a long term data set on zooplankton abundance as a context for intensive process-oriented studies. By providing a significant missing piece of the JGOFS sampling regime, it will permit monthly estimation of the role of zooplankton grazing, metabolism and migration in regulating the transformation of primary production to particle flux.